Science Teachers Research Involvement for Vital Education (STRIVE): Regional Replication

This project builds on the success of the STRIVE pilot program of Oak Ridge Associated Universities and replicates it at eight U.S. Department of Energy (DOE) laboratories. During each summer of 1989, 1990, and 1991, 50 middle and senior high school science and mathematics teachers will engage in full-time research on projects of national importance. They will also participate in workshops designed to explore innovative ways to more effectively communicate the nature of scientific research to students. The workshop sessions will also provide an opportunity to develop resource materials for use in their classrooms. Six hours of academic credit in education will be granted through the University of Tennessee. Participants will earn additional credits in the research discipline. A complementary set of academic year activities encourage past and present participants to interact with each other and with laboratory scientists. They are: Newsletter. A twice a year newsletter will facilitate ongoing contact between all participants and lab scientists. Visiting Scientist Program. Lab scientists who worked with the teachers will visit schools of the teachers. During the visit they will give classroom presentations/demonstrations, help with student projects, and work with students or teachers. Presentations. In-service sessions and other presentations to teachers, administrators, and parents will be made by the teachers based on their research experience. Database Access. ORAU will explore ways to provide STRIVE teachers with continuing access to information about laboratory research activities. Dr. Wayne Stevenson of Oak Ridge Associated Universities is the Project Director. He served as Co-Director for the pilot project. There is cost sharing in an amount equal to 112% of the NSF award.